RPG: Ion Microprobe Investigation of Trace Element Mobility During Subduction Zone Metamorphism

9405404 Bebout This award will support a detailed ion microprobe study of trace element mobility during subduction zone metamorphism. The research will provide fundamental observations regarding the partitioning of various trace elements (B, Be, Li, Cs, Rb, Sr, Ba, Ce, U, Zr, Nb, Y) among minerals in the Catalina Schist, California, which spans a wide range of P-T conditions (300-750oC, 5-11 Kb). An understanding of the magnitude and mechanisms of compositional modification of subducted rocks is essential to unraveling the complex, fractionated trace element signatures in arc volcanic rocks.